Research Initiation Awards: Forced Convection Boiling Vapor Bubble Nucleation, Growth, and Departure: REU Supplement

The majority of flow boiling heat transfer correlations reported in the literature utilize pool boiling correlations to model the microconvection component of heat transfer. However, there appears sufficient evidence that the physics governing the incipience, growth, and departure of vapor bubbles in flow boiling differs from that in pool boiling. Under such circumstances, the use of pool boiling correlations to model the microconvection component of flow boiling heat transfer would be questionable. The proposed investigation will consist of experimentally measuring the nucleation site density, vapor bubble growth rate, and vapor bubble departure diameter in saturated forced convection nucleate boiling. The manner in which the liquid film thickness, mass flux, gravitational orientation, wall superheat, thermodynamic properties, and heating surface characteristics influence these parameters will be thoroughly investigated. The local vapor volume fraction and liquid film thickness will be measured using a radiation adsorption technique. The nucleation site density will be determined photographically in conjection with a liquid crystal visualization technique. The vapor bubble growth rate and departure diameter will be measured using high speed cinematography. Using the experimental data to be collected, correlations for the incipience, growth and departure of vapor bubbles in flow boiling will be developed.